A Project to Establish Access to NSFNET for Graceland College

Graceland College is establishing a connection to NSFNET via a 56,000 bits per second line. The connection enables the school's faculty and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.